Instrumentation for New Cellular and Molecular Biology Course

The goal of this project is to equip the laboratory for a new, required course in Cellular and Molecular Biology. This course has been moved to the college's unique Spring Short Term to allow improvement and expansion of the laboratory experience afforded the students. (During this Spring Term, Bates students immerse themselves in a single course. This scheduling permits longer, more open-ended laboratory experiences than are possible to fit into the normal laboratory period of three or four hours.) The new equipment also will allow more individualized student instruction in such basic techniques as cell fractionation, electrophoresis, column chromatography, enzymology, and cell culturing. The improvements made through this award are expected to strengthen significantly the technical skills of students in this course, and to have a major secondary effect on the advanced laboratory electives currently taught in the Department. Instruments procured through the award include ultracentrifuges, a 12-port filtering manifold, tissue culture and cell harvesting apparati, electrophoresis equipment, fraction collectors and other chromatography instruments.